Interacting Signals and Cheap Talk Games

This research is on communication and has two parts. Part one concerns costly signaling by multiple parties. With few exceptions, signaling has been modeled as a game with one informed sender. This is inappropriate for situations with multiple informed parties. For example, industry insiders tend to have better information about their industry or each other's products than do outsiders, and many of their actions, such as pricing, investment, or advertising choices, are separably observed by the outsiders. Such senders "compete" in the signaling domain to influence the beliefs of receivers. This research will develop models of signaling competition in correlated private information settings. A central focus will be on the conditions under which signaling competition reduces asymmetric information losses. Part two concerns communication which is not costly, "cheap talk." Simple talking plays a large role in actual economic activity, but it plays no role in most economic models. The proposed research will develop theoretical models of face-to-face communication without mediators, emphasizing the role of multiple rounds of message exchange. Cheap talk refinement criteria for games with multiple privately informed parties and multiple rounds of communication will also be considered. These analyses are important because they will help advance our understanding in two issues in communication, namely, interacting signals sent by agents, and face-to-face and costless communication conveyed by people.